Collaborative Research: Automated Donning and Assembling Garments for Enhanced Independence

Dressing is a core activity of daily living that poses challenges for people with limited mobility and dexterity. This project will develop a new form of adaptive clothing to assist with dressing for people with arthritis. Called Automated Donning and Assembling (ADA) garments, this clothing consists of multiple cloth panels that autonomously assemble and wrap around the wearer. This reduces the difficult movements required to don clothing. The garments will require minimal in-home infrastructure, reducing barriers to adoption. The project will train college and high school students in the interdisciplinary engineering needed to develop future assistive and wearable devices. Overall, this project will create new strategies for smart clothing design to enhance independence for people with limited mobility.

The project will explore the fundamental engineering challenges underpinning automated garments. The research draws on soft robotics, biomechanics, and human-robot interaction. User movements and soft body-cloth interactions will be modeled during donning and doffing. Multi-piece garments and automated zipping mechanisms will be designed that account for body geometry and kinematics. User-focused design and evaluation with people with arthritis will be conducted. The project will demonstrate ADA garment development from end-to-end. The resulting models and algorithms will deepen understanding of how arthritis affects dressing and will advance the study of smart robotic garment systems.